U.S.- European Workshop: Three-Dimensional Modeling of Seismic Waves

0000932
Wu

This one-year award will support US student participation in an international workshop, Three-Dimensional Modeling of Seismic Waves Generation, Propagation and Their Inversion, to take place at the International Centre for Theoretical Physics in Trieste, Italy, September 25 - October 6, 2000. The workshops will be sponsored by UNESCO, the Italian Ministry of Foreign Affairs, the Central European Initiative-Earth Sciences Committee, and the Kuwait Foundation for the Advancement of Sciences (KFAS). Leading seismologists will map the Earth's interior through tomography. The workshop provides a venue for students-lecturers interactions and for student interactions with students from developing countries and Eastern and Western Europe. Half of the lecturers are from European universities allowing American students to stay abreast of the development of 3-D imaging in Europe and to develop future professional contacts.